Mathematical Sciences: Statistics for Spatial Data

The principal investigator will continue his study of spatial statistics. In particular he will develop inferential techniques for problems that are inherently spatial, but which also have a temporal component. It is this class of hybrid problems that promises to be highly relevant to many diverse fields of science. Three specific problems will be addressed: (1) spatial and temporal linear prediction based on minimizing mean-square error, (2) dynamic space-time modeling of marked point patterns, (3) tumor growth modeling based on random sets. There are several substantive disciplines that could benefit from the results of this study, e.g., ecology, hydrology, mining engineering, geography, microbiology.